RAPID: STEM faculty support to address impacts from COVID-19 on Tribal Colleges and Universities Program institutions

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering and mathematics (STEM) instructional and research capacities of specific institutions of higher education that serve the Nation's indigenous students. Expanding the STEM curricular offerings at these institutions expands the opportunities of their students to pursue challenging, rewarding careers in STEM fields, provides for research studies in areas that may be culturally significant, and encourages a community and generational appreciation for science and mathematics education, and sustainability of capacity gains is significantly enhanced by retaining the talent of credentialed STEM faculty. This project aligns directly with that goal.

The coronavirus pandemic of 2020-2021 caused major disruptions to institutions of higher education. However, for tribal colleges and universities, whose core operating funds are directly aligned with student enrollment, drops in enrollment equate to loss of funding. To mitigate against detrimental effects on STEM instructional capacity, this award will support the position of one full-time STEM faculty member, as well as other resources to maintain Keweenaw Bay Ojibway Community College’s STEM program as it recovers from the impact of the pandemic.